Greenhouse Renovation for Transgenic Plant Research

Plant science research at Colorado State University is emerging with a strong interdisciplinary focus on molecular biology. A diversity of research projects targeted at both exploring fundamental biology and improvement of crops is integrated with graduate student training. The Plant Biotechnology Program, which includes faculty from six departments and three colleges, and also interdisciplinary in scope and mission oriented in function, has generated a need for high quality greenhouse facilities with good control of environmental parameters that can meet NIH containment guidelines. In order to produce a facility dedicated to support the needs of plant biotechnology research, funding provided by the Academic Research Infrastructure Program, combined with resources from the University, will be used to renovate a 30 year old greenhouse and adjoining headerhouse. The physical condition of the fiberglass cover has deteriorated and considerable upgrading of electrical, ventilation, shading, insect exclusion and watering systems is needed. Capability for much improved control of environmental conditions, with the use of computer driven environmental monitoring and control systems, will be provided. Once completed, the facility will have space for transgenic plants, with modern equipment for environmental controls and pest management. Research personnel benefiting from the renovation will include: 11 faculty members, 6 postdocs, 22 graduate students, 15 undergraduates, and visiting scientists. This project will markedly improve the Program's ability to conduct reliable research and to train students interested in learning molecular techniques required for modern plant science research.